DIMACS/Georgia Tech Special Focus on Discrete Random Systems

During the past decade there has been tremendous interplay among
discrete mathematics, theoretical computer science, probability
theory, and statistical physics. This project brings together
researchers from these various fields to explore topics at their
interface, the field coming to be called Discrete Random Systems.
The focus is on probabilistic algorithms and models that arise in
the study of physical systems and combinatorial structures, with strong
themes running through these interactions including: phase transitions;
probabilistic combinatorics; Markov-Chain Monte Carlo and other
random walks; and random structures and randomized algorithms.
A series of workshops will address properties of large graphs, complex
networks and applications, Markov chain sampling (theory vs. practice),
and phase transitions in random structures. Focused working groups of
researchers will concentrate on the interface between Markov chains
and phase transitions, on heuristic and rigorous approaches to identifying
and analyzing phase transitions in algorithms.

Discrete Random Systems is a relatively new field that solidified
during an interdisciplinary series of workshops held at the DIMACS
Center and the Institute for Advanced Study ten years ago. Since then
it has matured considerably, and the truly bilateral exchange between
discrete mathematicians and theoretical computer scientists on the one
hand, and probabilists and statistical physicists on the other, has
radically impacted research directions and understanding in all of
these fields. The field explores algorithms and models that arise in
both the study of physical systems and the mathematical structures
arising from the fields of combinatorics and theoretical computer
science, with an emphasis on analogous behavior such as phase
transitions. The current project seeks to foster and speed the
development of this interdisciplinary field and to bring to it
coherence as well as rapid scientific development. The project will
be organized around a series of workshops, tutorials, research working
groups, and a visitor program, all intended to facilitate new
interactions. Workshops allow a cross-fertilization of ideas and
techniques from the disparate disciplines. Less formal groups of
researchers will convene for concentrated collaborative research on
specialized topics, and additional working groups will evolve during
the project. Exploration of new areas of application of Discrete Random
Systems will be enhanced by parallel DIMACS programs in Biology,
Epidemiology, the Social Sciences, and Homeland Security. The ideas
developed in this project will have impact on a myriad of fields and
create many new cross-disciplinary connections. A visitor program will
encourage senior and junior researchers, including students, to
participate in collaborative research spawned by the workshops and in
the work of the working groups. Each workshop will have a fund for
support of graduate students and postdocs and workshops will have a
substantial educational component through significant tutorial
components. The topic lends itself well to undergraduate research and
participating faculty will coordinate topics with an undergraduate
research program (REU program) already in existence. The project is
expected to have a long-term impact well beyond its two year duration
since the workshop, working group, visitor, and dissemination
components of the project will allow the ideas developed to reach
hundreds of people nationwide and worldwide. The project should
significantly influence the careers of a large number of outstanding
junior researchers and it should play an important role in the
training and development of scientists who are well-prepared to become
leaders in the field of Discrete Random Systems.